Harmonic Analysis and PDE Mini-Conference

DMS-9986086
ABSTRACT

This award is for the partial support of a conference in the field of Partial Differential Equations. The conference will address problems in the areas of: Dispersive Equations, Free Boundary Value Problems, Fully Nonlinear Stochastic Partial Differential Equations, Geometric Partial Differential Equations and their connections with Harmonic Analysis. All these areas are currently in the stage of significant development motivated by new ideas and new applications. The conference will be held right before the special session of the AMS, allowing the organizers to attract leading researchers in the field and many young investigators. The conference will definitely have a significant impact on the development of the field and will be beneficial to the mathematical community. I strongly recommend the award.